Acquisition of a Very Large Mass Storage System for Earth & Environmental Science Research & Research Training at Lamont-Doherty Earth Observatory

9601930 Lerner-Lam This grant, made through the Academic Research Infrastructure (ARI) Program, provides $500,000 as one-half support of the costs of acquiring a very large mass storage system for earth and environmental research at the Lamont Doherty Earth Observatory. Specifically, the equipment will include roughly 10.5 terabytes (TB) of mass storage, of which, 500 GB will be concentrated in high speed file servers and a serial storage architecture (SSA) disk and the remaining 10 TB of storage will be accommodated by digital tape through a "juke box" system. This mass storage system will serve both the IBM scalable parallel supercomputer (SP2) at Lamont and a network of 140 high performance workstations for this group's data intensive research including, reflection and refraction seismology, numerical modeling of the geophysical fluid dynamics of the Earth's mantle, climate dynamics and exploration and near-surface geophysics. ***